Energy Flow in Complex Elastodynamic Structures

Title: Energy Flow in Complex Elastodynamic Structures
Proposal No. CMS-0528096
PI: Richard L. Weaver, University of Illinois at Urbana-Champaign

Abstract

This dynamical systems project investigates vibrational and acoustic energy, its mean flow and its distribution in frequency, in complex irregular reverberant structures. The work is conceived with a view towards improved theories for the statistics of energy transport in such systems. The project is theoretical, with supporting numerical simulations and experiments. The method to be used has shown itself capable of describing distributions of energy density beyond the capabilities of conventional Statistical Energy Analysis (SEA), and to do so without the sometimes restrictive assumptions of SEA. Intellectual merit is assured through collaborations with academic and industrial structural acousticians, physicists, ultrasonic researchers and seismologists, presentations at physics and acoustical conferences, and publications in archival journals. Impacts include advanced training of students, cross fertilizations between disparate scientific fields (reverberation room acoustics, ultrasonics, stochastic seismic waves, musical acoustics, mesoscopic electronics, and diffuse optics for lidar and medical imaging), articles in popular presses, presentations at physics and acoustical conferences, and publications in archival journals.